Synthesis of Model Amphipathic Cyclic Peptides and their Potential to Induce Leakage in Liposomes

9409873 Ngu-Schwemlein Louisiana State University PI: Ngu-Schwemlein Louisiana State University Cyclic amphipathic octapeptides with alternating D- and L-amino acid residues will be synthesized. The opposing polarity faces in these peptides will be studied as models for interactions in phospholipid bi-layers. Cyclo (L-Xxx-D-Xxx)2-(L-Leu-D-Leu)2 , where X = Ser, Lys or Glu, will be prepared and characterized by NMR and high resolution mass spectroscopy. The potential of these cyclic peptides to induce leakage in a phospholipid bi-layer will be explored by measuring the change in fluorescence intensity of carboxyfluorescein due to leakage from liposomes. This Research Planning Grant from the Chemistry Division supports the research of Professor Maria Ngu-Schwemlein at Louisiana State University. Cyclic peptides with alternating D- and L- amino acid residues will be prepared. These molecules that have alternating "right hand" and "left hand" amino acid residues bonded into a cyclic array will be characterized by spectroscopic methods. Interactions across the ring of opposing charged residues is expected to display unique physical properties in these cyclic peptides. The possibility of these peptides inducing leakage in biologically important phospholipid membranes will be explored.